Oceanographic Instrumentation 2009

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

A request is made to fund additional and back-up instrumentation on the R/V Marcus Langseth, a 235? Global seismic vessel with general oceanographic operated by Lamont-Doherty Earth Observatory of Columbia University as part of the University-National Oceanographic Laboratory System research fleet. The award includeds two items:

1) Used Streamer Purchase
2) Near Field Source Hydrophones

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers. The additon of this new seismic will enable R/V Langseth to continue it role as the only academic research vessel in the world capable of performing 3D seismic surveys.